Breaking Barriers: Pathways to Graduation for Underrepresented Talent

This project is awarding scholarships to academically talented and financially needy engineering students and is supporting the scholars through a variety of structures and programs. Students from underrepresented groups are being especially targeted for support. Scholarships are being awarded to a single cohort of students who will be supported for a full four years. The project is implementing a recruitment-through-graduation strategy by removing traditional barriers to success for engineering students from underrepresented groups. There are six primary strategies being implemented through this project: an in-residence summer bridge program, renewable scholarships, opportunities for co-op or internship experiences, peer mentoring, a freshman engineering program, and a living-learning community.